Theory of Electronic, Magnetic and Transport Properties of Nanoscale Magnetic Junctions

This theoretical project explores the fundamental physics of electronic, magnetic and
Transport properties of nanoscale magnetic junctions. The major emphasis is on spin-
Polarized electronic transport in the nanojunctions, in which a small amount of various
Metallic, semiconducting or insulating materials is placed as a contact between two
Ferromagnetic nanowires. First-principles density functional calculations will be
Performed to predict electronic, magnetic and transport chacteristics of these
Nanojunctions. Micromagnetic modeling will be used to understand the magnetic
Structure of nanocontacts and tight-binding models will be developed to tread disordered
Systems and to explore the influence of localized states on magnetotransport in magnetic
Tunnel junctions. These theoretical studies will guide experimental investigations of the
Nanoscale junction fabricated by state-of-the-art nanofabrication techniques and will
Complement the established experimental program at Nebraska. The research will
Facilitate the development of novel magnetoelectronic devices, which merge spin degrees
Of freedom into electronic nanotechnologies.
%%%
This theoretical project explores the fundamental physics of electronic, magnetic and
Transport properties of nanoscale magnetic junctions. The major emphasis is on spin-
Polarized electronic transport in the nanojunctions. These theoretical studies will guide
Experimental investigations of the nanoscale junction fabricated by state-of-the-art
Nanofabrication techniques and will complement the established experimental program at
Nebraska.
***